Large-Area Biosensing Electronics

0088520
Greve

The goal of this project is the development of low-cost sensing systems capable of multiple simultaneous analyses of biological systems. These sensing systems will be applied to the electronic detection of cell motion and/or cell division which are key indicators of the cell function and thus the effect of drugs, cytokines, etc. Information obtained electronically will be used directly or in combination with microscopic techniques. Sensing is based on the use of large-area microelectronic fabrication techniques, which will ensure low cost, disposability, redundancy, accuracy, and high speed data collection. A direct interface with digital electronics will facilitate rapid analysis and throughput at least an order of magnitude higher than existing techniques, leading to improved productivity in pharmaceutical and biological research.